Promoting Chemical Inquiry Through GC/MS Instrumentation

9451442 Sherren The Chemistry Department is acquiring a GC/MS in support of continuation of its ongoing program to promote chemical inquiry based laboratory instruction. The instrument is being used by students across the entire departmental curriculum, from non-majors and students in related programs such as pre-health sciences and pre-engineering through advanced courses for chemistry majors. A emphasis is being placed on investigations of both naturally occurring and synthetic mixtures in the consumer marketplace.